Soil Stabilization Using Waste Plastics (SGER)

This project is a feasibility investigation into the possible use of thermoplastic wastes in soil grouting. Potential uses would be to improve soil foundations, slope stabilization, and possible building blocks for retaining walls and similar applications.